Paleomagnetism and Geochronology of Precambrian Rocks, Tanzanian Craton, East Africa

The reconstruction of Precambrian cratons and supercontinents and their breakup relies on well-constrained paleomagnetic data. Africa has an extensive and complex Precambrian shield, and considerable data exists. This project will obtain a number of key paleomagnetic poles from the Tanzanian Craton of east Africa that will allow testing of several conflicting hypotheses regarding tectonic processes during the Proterozoic, including the make up and timing of assembly of a Proterozoic supercontinent and whether the mobile belts surrounding cratons originated by ensialic or ensimatic sources. Results should provide comparative data useful in other Precambrian shields.